Purification of Multicomponent Liquid Mixtures by the Dual Recycle Thermal Swing Adsorption Process

Removal of dissolved matter from liquids is a problem of considerable difficulty in some cases. For instance, purifying brackish water for domestic or industrial use is a chronic problem in some coastal and/or arid regions. Also, dozens of municipal water sources contain large amounts of dissolved matter which must be removed before the water can be used. In order to achieve high levels of separation, many methods in which the fluid passes back and forth through a bed of absorbents have been examined over the years. The present proposal seeks to study a method, known as dual recycle thermal swing absorption (DRTSA) process, in which the product from the equipment is recycled back to increase the extent of separation substantially. The objective is to examine some fundamental physical and chemical issues that affect the performance of this process so that the economics of the process can be evaluated subsequently. If successful, this work will be of value in many industrial and domestic treatment processes.